Career: Experimental and Numerical Modeling of Flow and Morphology Associated with Meandering Submarine Channels

Funds are provided for a parallel analog and numerical modeling study to understand the structure of turbidity currents and nature of sediment deposits as they travel in meandering channels, 3-D seismic data on subsurface meanders will be used to link the model data with field observations. The research will be integrated with graduate and undergraduate education at University of South Carolina.